Quantum Dynamics of Ultra-Cold Atoms

This proposal aims to continue a research program on quantum transport of ultra-cold atoms. The PI will investigate quantum structure and dynamics of ultra-cold atoms in optical billiards and to measure quantum transport of ultra-cold atoms and condensates in two-dimensional optical lattices, with the focus on the transport in real space. In addition, experiments will be performed on the extraction of single atoms from a Bose-Einstein condensate with very high fidelity, with the atoms remaining in the ground state of a potential well (a quantum tweezer). Finally the project will implement multi-particle interferometry with atoms. On the broader impact of the research, the preparation of single atoms in a specified quantum state is the basis for several different schemes for quantum computation and quantum information processing.